Acquisition of VMCM Upgrade Electronics

9818452
Hosom
This award to Woods Hole Oceanographic Institution in Massachusetts will provide funds for acquisition of current meter electronics to modernize 39 vector measuring current meters operated as shared-use instrumentation by researchers at several U.S. academic institutions. An additional 39 units will be acquired with support from the Defense University Research Instrumentation Program (DoD/Navy). This capability will substantially improve capabilities for supporting studies of ocean currents by U.S. ocean scientists.
***